Implementing and studying a peer learning program to increase student success in calculus and statistics across two- and four-year institutions

With support from the Improving Undergraduate STEM Education: Hispanic-Serving Institutions (HSI Program), this Enriching Learning, Programs, and Student Experiences, Level 1 project aims to initiate and test Peer Assisted Learning, a successful modified Peer-Led Team Learning concurrent model, in two new settings to enhance the quality of STEM education, decrease fail rates and improve grades, retention, and feelings of belonging. The first setting is in Calculus 1 and 2 courses at a California community college where the recent state Assembly Bill 1705 is altering prerequisite requirements for this course sequence. As California two-year institutions explore new forms of concurrent student support in this changing landscape, this project will help determine whether Peer Assisted Learning is an effective intervention to support this policy reform. The second setting is in a statistics course at a four-year university with high transfer-enrollment, where implementing Peer Assisted Learning seeks to increase success of students immediately post-transfer. Overall, this project aims to improve grades and retention in two settings where students tend to abandon STEM degrees. Moreover, it will provide knowledge on the effectiveness of the proven Peer Assisted Learning model in high-fail courses.

This project aims to test Peer Assisted Learning in three key mathematics and statistics courses to reduce fail rates and improve grades, retention and feelings of belonging. It will create and administer new concurrent courses, faculty and student professional development, and added transfer student resources. Student performance and retention will be analyzed using statistical methods and surveys will be administered to examine belongingness. Data on students who participate in a concurrent Peer Assisted Learning course will be compared with those who do not, and subsets of post-transfer students and students influenced by Assembly Bill 1705 will be studied. Knowledge generated from this project will be disseminated to the broader research community, as well as to other community colleges and public, four-year universities impacted by this or similar legislation. This project will support ~300 calculus students and ~180 transfer students to enhance key points of the transfer STEM pathway. Faculty professional development will train seven faculty at each campus (14 total). Student facilitators will be trained to lead 32 courses over three years. This project is funded by the HSI Program, which aims to enhance undergraduate STEM education and increase capacity to engage in the development and implementation of innovations to improve STEM teaching and learning at HSIs.